Applications of the Chemistry of Organometallic Complexes of Osmium(VI) and Ruthenium(VI)

The focus of this project in the Inorganic, Bioinorganic and Organometallic Chemistry Program is high oxidation state organometallic compounds of osmium, ruthenium and iron. Of particular interest is the synthesis of organometallic complexes of osmium(VI) and ruthenium(VI) containing two pi-donor ligands, which are expected to have greatly enhanced reactivity relative to mono-oxo, imido and nitrido complexes. The synthesis of organometallic complexes containing high oxidation states of iron will be explored as well, beginning with attempts to convert stable oxides of iron(IV) and iron(VI) to oxo-alkyl complexes. The mechanism of the recently discovered method for selective coupling of organic halides and Grignard reagents, mediated by nitridoruthenium(VI) complexes, will be investigated. Following up on the discovery of a heterobimetallic catalyst for the selective oxidation of primary alcohols to aldehydes, the oxidation of olefins and alcohols with a variety of osmium and ruthenium chromate complexes will be explored. The mechanisms of these reactions will be studied and their applications in organic synthesis will be investigated. Chiral heterobimetallic complexes will be prepared for use in asymmetric oxidations. This project is expected to lead to useful new catalysts for facile transformations of organic compounds.